Enhancing Bioengineering Opportunities for Engineering Majors

PROPOSAL NO.: 0230058
PRINCIPAL INVESTIGATOR: Crimp (Baumann) Melissa J.
INSTITUTION NAME: Michigan State University
TITLE: Enhancing Bioengineering Opportunities for Engineering Majors

Abstract

Michigan State University will plan a systemically reform of its undergraduate
engineering programs and to enhance undergraduate student learning in the field
of bioengineering. This project will be undertaken by an interdisciplinary team composed of faculty from the College of Engineering and the College of Education.

It will address the following factors that affect the sustainability of curricular-change initiatives:
the role of strategic planning within the academic unit and at the institutional level;
the leadership role of department chairs/heads and college deans;
the role of faculty planning, faculty assessment and faculty autonomy;
the system of values and rewards for individual faculty and for their academic units; and
the role of constituent groups in establishing and evaluating educational program objectives and curricular outcomes.

Bioengineering was selected as the focus for this reform effort because the State of Michigan recently announced a $1B.i.e., $50M/year, twenty-year. commitment to developing "A Michigan Life Sciences Corridor."